WORKSHOP: Lake Tahoe Workshop on Hierarchical Visualization Methods - Oct. 15-17, 2000

This project supports a two-day workshop addressing topics in the general area of hierarchical scientific visualization. This includes topics such as hierarchical data representation and approximation; using hierarchical data representations for the purposes of interactive visualization emphasizing level-of-detail, adaptive, and view- dependent strategies; hierarchical data representations as they relate to distributed, remote, and collaborative visualization applications; and hierarchical visualization in immersive and virtual reality environments. The workshop will take place at Lake Tahoe, NV, on October 15-17, 2000.